CAREER: Activation of the Vibrio fischeri Luminescence Operon via Quorum Sensing

Stevens

LuxR from Vibrio fischeri is the best understood member of a new family of bacterial activators of transcription. These activators are involved in the cell density-dependent phenomenon of quorum sensing and response to self-generated acyl homoserine lactone environmental signals. The goal of this research project is to determine the molecular mechanism of transcriptional activation employed at the luxI promoter during quorum sensing. The primary focus will be to further define the roles of LuxR and RNA polymerase (RNAP) in this process using a combination of genetic and biochemical approaches. Active full-length LuxR will be purified and its activity characterized in vitro. Specific regions of RNAP that are essential for transcriptional activation at the luxI promoter will be identified. The residues on LuxR that are essential for transcriptional activation at the luxI promoter will be further defined. Intergenic suppressors that identify protein-protein interaction sites between LuxR and RNAP will be isolated. Finally, intragenic suppressors within LuxR that define interdomain interactions will also be isolated. The knowledge gained from these studies will be relevant to the growing number of bacterial systems that have been found to use a quorum sensing and response regulatory scheme. The incorporation into the instructional curriculum of the latest findings and theories coming out of emerging research fields like quorum sensing, is essential to the training of the next generation of microbiologists. Thus, an educational plan has also been developed with the primary goal of exposing undergraduate and graduate students to the current field of research in molecular microbiology, with a particular emphasis on microbial physiology and genetics. This will necessitate a coordinated discussion of curriculum at the departmental level followed by the design and implementation of appropriate new lecture and laboratory courses. To help optimize the quality of the students' learning experiences in these and other courses, the instructor will continue to gain knowledge in the areas of learning theory, instructional design, assessment and educational technologies. As a result of these efforts, modern molecular microbiology will become a standard part of the departmental curriculum used to educate and train students for their future professional careers in microbiology and related disciplines.

The idea that bacterial cells are capable of intercellular communication and coordinated behavior as multicellular units through a process known as quorum sensing is a relatively new, but important concept in the field of microbiology. Bacterial cells are able to control these processes at the level of gene expression through the activity of protein molecules know as transcriptional regulators. LuxR is the name given to the best understood member of a family of transcriptional regulators whose members all have similar functions. This LuxR family of transcriptional regulators controls the expression of a range of target genes involved in a number of bacterial processes of scientific, medical, agricultural and economic importance. Several of them, including LuxR, are found in bacteria that enter either helpful symbiotic, or harmful pathogenic associations with plant, animal or human hosts. A detailed knowledge of the precise molecular and biochemical functions of the LuxR family of transcriptional regulators may be useful for identifying compounds that interfere with these associations. This research focuses on further defining some of these properties for LuxR.